CSR: Small: Collaborative Research: Enabling Cost-Effective Cloud HPC

The project examines novel services built on top of public cloud
infrastructure to enable cost-effective high-performance computing.
The PIs will explore the on-demand, elastic, and configurable features of
cloud computing to complement the traditional supercomputer/cluster
platforms. More specifically, this research aims to assess the efficacy
of building dynamic cloud-based clusters leveraging the configurability
and tiered pricing model of cloud instances. The scientific value of this
proposal lies in the novel use of untapped features of cloud computing
for HPC and the strategic adoption of small, cloud-based clusters for
the purpose of developing/tuning applications for large supercomputers.

Through this research, the PIs expect to answer key research questions
regarding: (1) automatic workload-specific cloud cluster configuration,
(2) cost-aware and contention-aware data and task co-scheduling,
and (3) adaptive, integrated cloud instance provisioning and job
scheduling, plus workload aggregation for cloud instance rental cost
reduction. If successful, this research will result in tools that
adaptively aggregate, configure, and re-configure cloud resources for
different HPC needs, with the purpose of offering low-cost R&D
environments for scalable parallel applications.